Design and Analysis of Parallel Cache-efficient Algorithms

Chip multiprocessors (i.e., multicores) are rapidly emerging as the dominant platform for computing. This computing environment features parallel computing with shared-memory and a hierarchy of caches. This research will develop parallel and cache-efficient algorithms for many important problems that can be used effectively on multicores. The outcome of this research will be a set of provably correct methods for the efficient use of multicores, which is of critical importance given the imminent reality of multicores on every desktop. These results will have broad applicability to all fields that rely on compute-intensive tasks.